Mathematical and Computational Studies of Interfaces and Defects

This project will focus on the development and analysis of numerical methods
to probe the complex energy landscapes related to various interface and defect
problems, such as microstructures in materials undergoing phase transitions,
quantized vortices in geometrically frustrated configurations, and so on.
The associated stochastic dynamics and hydrodynamics, as well as their
numerical approximations will also be investigated.
He will also study robust and adaptive algorithms that are useful in the
statistical analysis of the underlying structures and important features.
These research issues, on one hand, are driven by practical applications
through collaborations with other scientists, and on the other hand, also
motivate new studies of mathematical subjects ranging from geometry and
topology to numerical and stochastic analysis. The research to be carried out is of interdisciplinary nature, encompassing subjects like computational mathematics, physics, information, materials and biological sciences.
There are many mathematical and numerical challenges involved in the research
such as the understanding of the collective behaviors of families and paths of
solutions of nonlinear PDEs and stochastic dynamics, and the exploration of
the hidden structures and statistics in the simulated results.

The research on the algorithmic development and numerical simulations can help
enhancing the capability as well as the predictive power of scientific
computations, which has potentially significant scientific, social and
economic impact and is one of the top research priorities internationally.
Meanwhile, interfaces and defects are also ubiquitous in nature which play
fundamental roles in many aspects of physical and biological systems. A better
mathematical and computational understanding of interfaces and defects,
especially in a stochastic setting, will enrich the scientific knowledge base, which in turn may aid the efforts by physicists, materials scientists and engineers in discovering new materials with desirable properties and in
developing new scientific devices and commercial instruments. This project
will also provide valuable interdisciplinary research opportunities for the
future generation of workforce and researchers. With an emphasis on the TEAMS
(Training in Experiments, Analysis, Modeling and Simulations) spirit, young
students can be better prepared to conduct interdisciplinary research in their
career.